Duality Methods for Inifinite Dimensional Optimization Problems

The project described in this proposal is in the general area of Nonlinear Optimization, and the research issues focus on infinite dimensional convex optimization problems (IDCP). A large number of concrete problems arising in various fields of applications in Engineering and Computational Mathematics can be modelled as (IDCP). An important objective of this project is to demonstrate that all specific variants of the class (IDCP) can be analyzed in a unified way via duality methods. The use of duality techniques leads to produce finite dimensional computationally tractible problems and thus open the possibility of constructing efficient algorithms for solving (IDCP). The PI has excellent credentials and resides in a suitable academic environment for gaining promising results.